Connecting Dartmouth College to vBNS and Internet 2

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an DS3 ATM connection to the Very High Performance Backbone Network Service (vBNS). This connection will be made through the proposed Boston Area Gigapop which will be connected the the vBNS with an OC-3c circuit. Applications include: - Magnetosphere Modeling - Satellite Data Research and Analysis - Parallel I/O - High Performance Distributed Simulation - Analysis of Multimedia Information - Transportable and Intelligent Agent Systems Collaborating with: - Brown University - California Institute of Technology - Goddard Space Flight Center - Harvard University - MIT - Naval Research Laboratory, - University of Maryland The award provides partial support of the project for two years.